Workshop on Quasiconvexity and its Applications

A workshop would be organized and held at Princeton to celebrate the introduction of quasiconvexity by C.B. Morrey 50 years earlier by surveying recent developments and stimulating future applications. Quasiconvixity was originally introduced as a condition to understand the closely related questions of lower semicontinuity and existence in the calculus of variations. It is now clear that quasiconvexity is fundamental in many other applications.